Parental Care Evolution: Testing Hypotheses in a Fish with Variable Care

Workers in the fields of behavioral ecology and evolutionary biology have long been grappling with the general question of how complex behaviors may evolve. Although comparative approaches have provided insight into plausible mechanisms, there is ultimately no substitute for experimental test. Manipulative field experiments are one of the most powerful and convincing (yet rarely used) means at our disposal for testing hypothesis about the evolution of behaviors. This research by Dr. Van den Berghe will be the first experimental test of several hypotheses that have been proposed as ultimate explanations for why parental care evolves in marine fishes. The hypotheses are not mutually exclusive and may all apply. In this study, he will test the importance of mate availability, juvenile survival, and cost tradeoffs in independent field experiments to see which of these factors may be critical for the evolution and maintenance of parental care in a species with facultative care.